Improving the Dynamic Performance of Manufacturing Systems and High Speed Products

A new patented method to reduce the oscillatory behavior of electro-mechanical systems, called Command Input Pulse Shaping, was successfully demonstrated in Phase I of this SBIR effort. When implemented on essentially single-mode systems, dramatic improvements in dynamic behavior were observed, with settling times being reduced by factors ranging from 3 to 5. The current work is to now implement this technique to more complex multi-mode systems and to refine and fine tune the procedure to achieve better and quicker results. The economic and technological impact of this work is potentially tremendous. Almost all electro-mechanical machinery, in manufacturing and other industries, are constrained in their ability to perform by their dynamic characteristics that leads to vibratory motion. A practical technique that can counter this, would have far reaching consequences in terms of improving performance and allowing the equipment to perform at increased rates. The economic impact of this possibility could be significant.